CAREER: Hybrid Control of Nonlinear Systems

The theory of automatic control has reached considerable maturity
in the last few decades. Solutions to a large number of diverse
and challenging problems have been obtained, and many important
mathematical aspects of the theory are well understood. However,
there remain several categories of problems for which the success
of standard control tools has been limited. These include:

1. Control of systems that cannot be stabilized by continuous
feedback.
2. Control of systems with sensor or actuator
constraints.
3. Control of systems with large-scale modeling
uncertainty.

The research and educational development plan
proposed here is aimed at designing hybrid control
algorithms. In this framework, a continuous-time process is
controlled by means of logic-based switching among a family of
regulators. The closed-loop system is then called hybrid
because it combines continuous and discrete dynamics. We study
several situations in which such a control paradigm is natural and
helps overcome various shortcomings of more traditional control
methodologies.

The primary focus of this research is on systematic development of
tools for hybrid control design, applicable to general and useful
classes of nonlinear dynamical systems. We propose to achieve this
goal by recognizing common trends that unify different aspects of
the problems under consideration, and by exploiting recent
advances made by the proposer and collaborators in nonlinear
disturbance attenuation and in stability analysis of switched
systems.

Hybrid control techniques are suitable for implementation in the
context of many important applications that drive the modern
technology, such as software-enabled control, control over
networks, and vision-based control. These methods help bridge the
gap between the mathematical control theory and engineering
practice. For this reason, they also generate high student
interest. Our research program will be integrated into the
academic curriculum of the Electrical and Computer Engineering
Department of the University of Illinois at Urbana-Champaign
through course development, student mentoring, laboratory
creation, and tutorial publications.